Developing and Evaluating an Indicator System to Monitor Mathematics and Science Education

"Developing and Evaluating an Indicator System to Monitor Mathematics and Science Education" This project, conducted by the RAND Corporation, involves the collection and integration of large national data bases to design and develop indicators of the status and condition of precollege science and mathematics education. Four areas of science and mathematics education will be included in the indicator system: teachers and teaching quality; curriculum and instruction; participation (especially, that of women and minorities); and, achievement and outcomes. The methods to be used to develop the indicator system will be to: 1) synthesize data from an array of national data bases to obtain additional information on the condition of science and mathematics education; 2) evaluate the results to determine the strengths and weaknesses of the existing data and the indicators that can be built from them; and, 3) use a wider variety of data--including data that are not nationally representative--to explore the potential of components of measures that might be useful for future data collection efforts. Because this is an exploratory project (over a proposed two-year period) a review will be conducted of it near the end of the first year's effort to decide whether to continue funding for the full duration.